Intelligent Control Using Neural Networks

This project will implement and test new architectures for artificial neural networks designed to address the problem of controlling actions over time to achieve stated results. The tests will be relatively well-understood and mathematically simple, at first, in order to permit mathematical analysis and comparison with traditional methods. If the initial work is successful, the new architectures will be used in conjunction with the P.I.'s existing research on the National Aerospace Plane (NASP), to provide an alternate control scheme for NASP. Given the risks of the existing control plans, and the necessity for large-throughput highly-nonlinear control (areas in which neural networks excel), this should hopefully increase the long-term probability of success of NASP.